International Workshop on Computational Electronics May 28-29,1992 at the Beckman Institute of the University of Illinois at Urbana-Champaign

The International Workshop on Computational Electronics will be held at the Beckman Institute of the University of Illinois at Urbana-Champaign on May 28-29, 1992. The workshop will cover all aspects of advanced simulation of electronic transport in semiconductors and semiconductor devices, particularly those which use large computational resources. Topics will include: 2-D and 3-D standard simulations (drift- diffusion, hydrodynamic equations), Monte Carlo device simulations, and Approaches to quantum transport. The workshop is intended to be an international forum for the discussion on the current trends and the future directions of computational electronics. A significant number of invited papers presented by speakers from major universities and laboratories in Europe an Asia will be included. Plenary sessions will be followed by poster presentations from US groups, to stimulate and contribute to overall discussion. The emphasis of the contributions will be on interdisciplinary aspects of Computational Electronics, encompassing Applied Physics, Engineering and Applied Mathematics. Active participation of graduate students, including student poster papers, will be strongly encouraged. The results of the workshop will be disseminated in the form of proceedings. In the past Kluwer Academic Publishers has efficiently handled the printing of the proceedings which then where distributed to the participants within a few months after the meeting. Attempt to have similar arrangements with a publisher to be determined by university procedures will be made.